A Technical Industry, Community College, and Secondary School Partnership to Enhance Science Curriculum and Equipment Updating

This three year project will provide updating for high school teachers on recent content and laboratory developments in chemistry, physics, biology and mathematics through establishment of a partnership which will bring high school teachers, college faculty, and industry scientists, engineers, and mathematicians into a strong working relationship. The mechanism for providing the update is through intensive two-day workshops in each discipline area with follow-up activities between Inver Hills faculty, industry scientists and high school teachers to insure effective application in the high school classroom and to offer specialized classes at the college. Updates will be planned, presented, and evaluated by the partnership of technical industry, a regional planning and service agency, a community college, and local school districts. Commitments have been received to foster dissemination and application of this model partnership in community colleges throughout Minnesota and at the national level. Cost sharing by the partners will total 64% of the National Science Foundation funding.